Collaborative Research: Manipulation Network for Surgical Robotics Research

While areas of the US such as California and the East coast have major
medical centers near every population center, there are many areas,
even in developed countries, with a widely dispersed patient
population with significant obstacles to advanced medical care.
Victims of large scale natural disasters and battlefield casualties
also lack state of the art care. Telesurgery could potentially meet
these needs. There is a growing interest in computational research on
intelligent telesurgery. Today's telesurgery systems do not integrate
with medical imaging or have intelligent functions to assist the
surgeon. This project is building seven teleoperated surgical robot
and surgeon-interface systems powerful and precise enough to support
research on advanced robotic surgery techniques at seven major
research universities. University of Washington and University of
California Santa Cruz are building the seven robots and will
distribute them to Harvard, Johns Hopkins, University of Nebraska,
U.C. Berkeley, and UCLA. When completed, the seven research lab
robots will be networked together for sharing of software,
interoperability, and on-line telesurgery experiments.

Impact

The results of this project will enable a network of researchers to
prototype advanced surgical robotics techniques, and evaluate them in
realistic contexts including appropriate animal procedures. Besides
new and less invasive cures, such a technology can provide easier
access to care in remote parts of the US, and the developing world.
The seven cooperating labs, and external partners will be able to
interconnect their systems, share modules of software, and replicate
each others experiments.